Probing Cosmological Parameters and Cluster Gas Physics through Measurements of the Sunyaev-Zel'dovich Spectrum

AST-0407212
Church

Galaxy clusters are excellent cosmological probes, capable of measuring both the mass distribution in the universe and the dynamics of its expansion. Measurement of the Sunyaev-Zel'dovich effect (SZE), which is the inverse scattering of cosmic microwave background (CMB) photons by hot gas in clusters, determines cluster peculiar velocities without the need for empirical distance indicators. This research will continue the Sunyaev-Zel'dovich Infrared Experiment (SuZIE), using a new receiver with additional frequency coverage, capable of faster, higher precision measurements. The study will measure 100 clusters, determining the density parameter and the variation of the temperature of the CMB as a function of redshift.

The receiver will be available for other investigations that can use its multi-frequency capabilities. Students involved with SuZIE will learn start-of-the-art instrumental techniques, including optical and electronics design and fabrication. The research will continue to involve undergraduates, and in the past more than half of them have been women. The team will also continue giving public talks and participating in Stanford high school programs for students and teachers.